RUI: Dynamics of Nonlinear Spin Waves in Magnetic Films: Envelope Solitons, Self-Focusing, Wave Collapse

9701640 Slavin This is a grant to support research at a largely Undergraduate Institution, the Oakland University. The research program consists of a theoretical study of nonlinear magnetism and excitations in finite media, i.e. devices. The specific projects in this grant are: (1) Two dimensional nonlinear diffraction of finite aperture SW beams and pulses in magnetic films leading to self channeling, self focusing and wave collapse; (2) Formation and propagation of one dimensional "bright" and "dark" spin- wave envelope solitons in weakly dissipative magnetic films and (3) parametric amplification of "bright" envelope solitons in magnetic films by external microwave pumping. Results of this research will be useful for the development of microwave signal processing devices based on nonlinear spin wave processes in magnetic films. %%% This grant supports theoretical research at a predominantly undergraduate institution on a problem in device magnetism. The research is expected to advance our understanding of nonlinear wave dynamics in a magnetic medium and has applications to a better understanding of the properties of high quality garnet films as used in microwave technology. The project involves undergraduate students within the framework of an internationally acknowledged active research program. ***